Joint R&D Proposal for Linear Collider Tracking

This proposal requests funds to support the Wayne State University group's fraction of a collaborative effort on the research and development of hardware and reconstruction algorithms for charged particle tracking at a future Linear Collider. The collaboration consists of the University of California at Santa Cruz, University of Colorado, Indiana University, University of Michigan, Wayne State University, and Yale University

Brought together in this group from the participating institutions are experts in tracking detectors, both in the hardware aspects of such detectors and in tracking and reconstruction algorithms. The aim of the research is to specify the tracking system for a Linear Collider detector by determining the requirements that a list of interesting benchmark collider processes put on the detector design.

The PIs and a post-doc will explore a Silicon Drift Detector (SDD) array as the tracking device for Linear Collider detector. The main physics interest is the study of Higgs production and properties through quark tagging and the physics at the top-antitop threshold.